PYI: Improving the Dependability of Large-Scale Concurrent Software

Work is performed to improve the dependability of large-scale concurrent software by; (1) devising scalable, compositional analysis techniques, (2) developing a sound framework for combining verification, analysis and testing techniques, and (3) integrating analysis techniques in software development environments.